Collaborative Research: Algorithmic Problems in Next Generation Networks

This research involves the study algorithmic problems that arise in
the design of next generation networking technology.
Rapid growth of the internet user base, coupled with rapid parallel
growth in mobile subscriber numbers, is creating powerful pent-up demand
for wireless access to the internet/intranets and other data networks.
Communication in wireless networks differs in some fundamental
ways from communication in wired networks. In particular, the basic
form of communication in wireless networks is broadcasting,
as opposed to point-to-point communications in most wired
networks. This research investigates the effect of switching to
broadcast communication on server strategies
in the client-server computing model, one of the most common
computing paradigms.

A wide range of real-time applications, such as multimedia conferencing,
computer supported cooperated workspaces, remote medical diagnosis etc.,
has become very popular in recent years. These applications have
dynamically changing bandwidth requirements.
It is clear that controlling and allocating
bandwidth for individual users and web browsers is becoming very
important for bursty traffic flows utilizing highly constrained
communications channels.
From the network management's perspective, it is advantageous to
allow the network to dynamically
change the tariff parameters of the charging scheme in response to demand.
This research investigates dynamic renegotiation and
pricing problems that arise in the design of networks
that give quality of service guarantees.